Science Source Pathways Project

The Science Source Pathways Project will conduct initial work designing and testing a new model for providing news on STEM related topics to the rural and Native American communities in Montana. This project will enhance understanding of how the communication of scientific research reaches and impacts underrepresented audiences. A collaborative model will be developed between the environmental journalism program at the University of Montana and various local television, radio, and online media outlets that are either operated by or reach Native Americans on reservations and throughout the state.

Project deliverables include a survey and analysis of current science reporting reaching this audience; and production and testing of prototype science news stories for dissemination on various platforms (print, radio, TV, web). The development of science news pieces will be led by graduate students in the School of Journalism under the careful guidance and mentorship of experienced professors.

This project will enhance the communication and amount of STEM content delivered to underserved groups, and provide diverse opportunities for them to engage in STEM related environmental issues that affect their local communities.